Conference on Non Compact Variational Problems and General Relativity

ABSTRACT

This award is for the partial support of the conference in Geometric Partial Differential Equations and Calculus of Variations at the Rutgers University. The conference will attract many leading researchers in the field and will provide an opportunity for communication and collaboration between senior and junior investigators.